DHHS Program Support Center: Task Order Educational System Reform Systemic Initiatives Principal Investigator National Meeting

9815123 Quave The Cygnus Corporation presents a detailed plan to provide the National Science Foundation (NSF), Division of Educational System Reform (ESR) with logistical support for the ESR Systemic Initiatives Principal Investigator (PI)/Project Director (PD) National Meeting. The primary purpose for this meeting is to allow PIs and PDs to discuss issues critical to the successful implementation of systemic reform, to share best practices, and to meet with their cognizant program officers. Under this plan the Cygnus Corporation will obtain the meeting site, handle meeting pre-registration and registration and arrange for all meeting logistic including meeting rooms, audio-visual requirement, invited speakers and other support.